Workshop for a Biometric Research Agenda; Morgantown, WV; Spring 2003

EIA- 0240689
Edwin Rood
West Virginia University

Title: Workshop for a Biometric Research Agenda

The objective of this workshop is to develop a consensus for a biometric research agenda by bringing together the national experts in various disciplines converging to the field of biometrics. The disciplines include natural science and engineering, social science, political science, economics, and other disciplines.

The workshop will address the following topics:

What biometric technologies are currently deployed, currently available but not yet deployed, and in development that could be deployed in the foreseeable future?

What measures of effectiveness are required to ensure that these technologies help to provide security?

What are the economic verses effectiveness trade-offs of implementing these technologies?

What are the implications of biometric technologies for personal security and preservation of individual liberties, and for lifestyle within our society?